Career Development Proposal

Abstract
CTS-0092665
F. Jaberi, Michigan State University

The PI proposes to study the following two areas: one is the development of Sub-Grid Scale (SGS) models for the implementation of the Large Eddy Simulation (LES) of turbulent reacting flows, and secondly, the exploratory research on monitoring indoor air quality and multiphase & multifluid transport. In both areas of the research, the PI proposes to use the "filtered mass density function" (FMDF) developed by the PI for the closure methodology in LES application. He also plans to incorporate more realistic chemical kinetics in the turbulent combustion problem. Advances in simulation of turbulent combustion will result in improvements of combustion efficiency and better prediction of pollution production. A better monitoring of indoor air quality will lead to a healthier living environment.